Country Studies to Address Climate Change

To assist developing countries and countries with economies in transition formulate their climate-change policies, the United States Government has committed $25 million over two years for the development of Country Studies to Address Climate Change. These studies will help establish an analytical and institutional foundation upon which recipient countries may construct their national climate action plans and help those countries fulfill their obligations under the Climate Change Convention. Following review of proposals submitted by eligible countries, financial and technical support will be provided to selected counties to enable them to conduct inventories of their greenhouse-gas emissions, to assess their vulnerability to climate change, and to evaluate response strategies for mitigating and adapting to climate change. Agencies participating in the U.S. Global Change Research Program have been directed by the Office of Management and Budget to transfer funds to one of the three agencies cooperatively managing the Country Studies initiative to be used for support of the initiative. This interagency agreement transfers $1,366,000 from NSF to the Environmental Protection Agency as directed by OMB for this purpose.